Collaborative Research: Unpacking Computational Thinking for Elementary Teachers and Learners

The goal of this project is to investigate the integration of computational thinking (CT) into elementary school curricula by studying how teachers develop expertise in integrating CT activities that align with interdisciplinary standards and existing curricula. This project addresses the critical need for science, technology, engineering, and mathematics (STEM) literacy by investigating effective models of professional development (PD) that improve STEM teaching and learning. Leveraging an asset-based approach, the project will provide opportunities to broaden participation in computer science education through building a community of practice for teachers and designing CT-infused curricula. To ensure that all teachers have the necessary support to participate in new pedagogical practices of increasing complexity, the project will utilize a collaborative teacher PD and mentorship structure in which teachers will work closely with peers and project team members to prepare, teach, and reflect upon lessons through multi-year participation. The research will document how teachers come to understand CT and take up these practices in their classrooms. The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of STEM by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

Over four years, this project will directly impact 135 teachers in multi-year participation in professional development and approximately 12,000 students indirectly in their classrooms. This project will initially focus on schools in South Carolina, especially in rural districts. The project will be guided by three primary research questions: 1) How do preK-5 teachers integrate CT into their disciplinary teaching?; 2) What are the personal learning trajectories that teachers move through as they work towards CT integration?; 3) What are the barriers and accelerators for teachers’ implementation of CT-infused lessons? This project is grounded in the idea that incremental, sustainable, and substantial teacher learning comes when teachers are fully invested in the cycle of learning and have opportunities to build and strengthen their communities of practice. In reflective PD sessions held throughout the academic year and summer, teachers will explore, co-design, implement, and refine student learning activities that integrate CT into existing content area standards and curricula. The CT activities, which will include standards-based lesson plans, assessments, and supplemental resources, will offer both plugged and unplugged components, so that students and teachers have opportunities to understand the conceptual underpinnings of computational thinking with and without computers. A minimum of 120 lessons and related pedagogical materials mapped to core-content standards will be developed and made freely available to the public on the project website. Using a mixed methods approach, this study will document the trajectories through which elementary teachers move as they begin to integrate CT into disciplinary teaching, as well as barriers and accelerators faced as they integrate CT into disciplinary teaching. Quantitative survey methodologies and multimodal analysis of narrative interviews, classroom video, teacher reflections, and pedagogical artifacts will be used to analyze teachers’ sense making about CT over time and the uptake of new pedagogical approaches in their teaching. Ultimately, this study will produce a set of empirically-tested learning trajectories that can be used to support teachers in integrating CT into their classrooms. As a means of expanding the community of practice, sharing resources, and disseminating project findings to a nationwide audience, the project also incorporates a virtual PD component to support PD access to elementary school teachers from underrepresented and underserved schools across the United States.